CISE Research Instrumentation

A 16-node transputer system will be provided for researchers at the New Jersey Institute of Technology for research in the Department of Computer and Information Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area for Grouping for Parallelizing Nested Loops on Multicomputers.